SBIR Phase II: Development of a Media-Rich, Game-Based Social Learning Platform for Improving Math Process Skills

This Small Business Innovation Research (SBIR) Phase 2 project proposal refines and scales the project's initial platform for improving mathematics problem solving. Math classrooms today spend most of their time practicing procedures and rarely spend time engaged in deep study of mathematical concepts. In addition, by the time students reach middle school, a number of them have either developed math anxiety or are not adequately challenged. This mobile collaborative platform supports process-driven, student led solutions. Students can create, curate and evaluate multimedia vignettes of their own thinking process. In Phase 2, the team will continue to refine the product, targeting students in Grade 5-12. It will also build a multi-faceted dashboard to help educators customize content, create learning pathways and determine student strengths and weaknesses. In addition, the company intends to extend the product to support English Language Learners and students with learning difficulties.

The broader impact/commercial potential of this project offers tremendous promise for changing math education and engagement both in and out of the classroom. This platform will help students develop confidence and skills in solving complex problems, refine their math communication and improve their meta-cognition through the review of other students' work and equip teachers with tangible data about growth measures. This enables the company to address multiple markets starting with the $1.6 billion 5-12 market segment and subsequently addressing several adjacent market segments that are growing rapidly. The team brings a strong and diverse mix of educational, technical and business skills that will be critical to successful commercialization of the proposed math education innovation.